Geographic Information Systems (GIS)/Image Processing Laboratory

This proposal is concerned with the development of a Geographic Information Systems (GIS) /Image Processing Laboratory. Although GIS and Image processing are complimentary analytical "tools" which are commonly used in geography, geology and other fields, they rarely have been operationally linked and integrated into a single system.Students in eighteen classes will have a direct hands-on opportunity to utilize the proposed multi-user, multi-task laboratory for classroom and research projects. Hard copy products from the GIS/Image processing Laboratory will be utilized as demonstrating models in several other classes. The proposed hardware and software package represent state-of-the-art technology in the GIS and Image processing fields. Access to such technology and hands-on experience will enable our students to effectively compete for the burgeoning employment opportunities in fields utilizing GIS/Image processing services.